Collaborative Research: NeTS: A periodic table of congestion control: A formal taxonomy of algorithms and scenarios

Congestion control algorithms (CCAs) play a critical role in allocating resources in computer networks today, with the ideal goal of ensuring both efficient use of the network and fair access to all endpoints. As a result, CCA design is a well-studied topic in networking research due to its central role in network performance. The diversity in modern CCA designs arises from the wide range of networks and application objectives. Unfortunately, the lack of formalism in congestion control design has led to a long history of heuristic designs, with little understanding of what efficiency and fairness outcomes are possible and what proposed CCAs achieve in the worst case. By taking a formal approach to understanding CCAs and network settings, this project will make it possible to ensure that future CCAs can provide the best possible performance guarantees for a particular network setting. This will potentially improve the performance and stability of the Internet, a vital service for everyday life. Critically, it will enable emergent applications that require reliable network performance, including augmented and virtual reality, artificially intelligent systems, and low-latency internet-of-things networks.

This project will develop “Congestion Control Scenarios (CC-Scenarios)”, a framework to formally capture the design considerations for a CCA, including network models, application objectives, and controller architectures. Based on this framework, the project will: a) develop techniques to rigorously transfer knowledge across different CC-Scenarios, avoiding redundant work, b) prove theorems to identify which CC-Scenarios are achievable, and c) design provably efficient CCAs for achievable scenarios. All results will be documented in a machine-searchable library, enabling practitioners to quickly check if solutions exist for their specific use case.